Teaching Differential Equations Using a Dynamical System Perspective

This project is intended to promote a new style of differential equations instruction, one that emphasizes concepts and applications and one that involves faculty members from both the mathematics and engineering communities. We will share the results of the Boston University Differential Equations Project in developing and implementing a radical revision of the traditional sophomore-level differential equations course designed to achieve these goals. The project will also feature presentations from an engineer who teaches courses that depend heavily on the differential equations course. To emphasize the way in which differential equations are used throughout a student's education, participants will take part in collaborative activities in small groups that include both engineering and mathematics faculty members. The goal is to promote a style of differential equations instruction that better engages and serves students throughout their college and professional careers.